U.S.-U.K. Cooperative Research: Quantum Magnetotransport in Modulated Electronic Systems

9402741 Gumbs This three-year award supports U.S.-United Kingdom cooperative research in materials theory between Godfrey Gumps of Hunter College of the City University of New York (CUNY) and Michael Pepper of the University of Cambridge. The objective of their research is to explain theoretically the transport properties and plasmon excitation spectrum of electronic microstructures in spatially confined electronic systems. The U.S. investigator brings to this collaboration theoretical expertise and will compute properties of arrays of quantum antidots and dots. These systems exhibit novel magnetic field dependent phenomena and could play a crucial role in the next generation of computers. Quantum dots have a range of electronic and optical applications. And dots have possibilities as the basis for more efficient and precisely tuned semiconductors. The theoretical effort is complemented by the experimental expertise of the British research group. Dr. Pepper and his colleagues will fabricate, grow and characterize the semiconductor samples and perform transport and infrared absorption experiments. The theoretical results obtained at Hunter College will be compared with the experiments. The proposed research will advance our understanding of these electronic systems and their transport properties.